Thermal, Thermoelastic, and Dynamic Effects in Electrical Brushes

Wear of current collectors (electrical brushes) is a major cause of failure in motors, further, resultant down time for repair has a serious impact on productivity. The objective of this effort is to provide an improved theoretical model of high current density brush physics that includes both dynamic and thermoelastic effects. Specifically, the effects of bulk variables such as current, rotor speed and geometry, contact force, and others on the formation of slowly moving hot spots in the brush will be investigated. With better understanding of brush physics, the model should lead to improved brushdesign.